Solid State Physics Studies with Positrons

Funds are requested to continue at Brandeis University a research program involving the use of positron annihilation techniques in the study of solid state physics problems. The topics to be studied are: 1) Fermi surface and momentum density measurements in some metallic alloys; 2) The use of spin polarized positrons to study ferromagnetic materials; 3) The continuation of the graphite intercalate studies, and 4) Momentum density studies in high temperature superconductors and in other highly correlated metallic oxides.